CAREER: Utilizing Nonlinearity - Leverage to Global Synthesis of Inherently Nonlinear Systems

In this project, we propose an intensive program to develop new controller design
methodologies for a variety of inherently nonlinear systems, and to apply the findings to
the control problems of underactuated mechanical systems, mobile robots with flex link,
and other practical systems with various uncertainties. The systems under consideration do
not have a controllable linearization that is a common requirement of existing control
schemes. Therefore, most of the control problems for these systems are still open and
indeed bring new challenges to the control engineering. In this project, we concentrate on
the development of both theoretically sound and practically useful controller design
schemes, which enable us to solve the difficult problems of global stabilization, adaptive
regulation, and output feedback control, for inherently nonlinear systems that cannot be
adequately controlled using the existing methods.
Our primary approach relies on the adding a power integrator technique developed by the
proposer and collaborators, which fully utilizes the nonlinearity of the systems to
effectively control the inherently nonlinear systems. The recent research work based on
this tool has led to new solutions to a number of control problems for systems with
uncontrollable linearization, and suggests that very promising advances can be achieved by
this research program.
The educational component of this CAREER development plan aims at developing and reshaping
courses, introducing innovative teaching techniques, mentoring undergraduate and graduate
students, setting up new laboratories, and creating research-oriented projects and
hands-on experiments. With all these efforts, we believe that the research program can be
effectively integrated into the academic curriculum of the University of Texas at San
Antonio. Moreover, while exposing the students to state-of-the-art techniques, the
education plan will also help bridge the gap between theoretical research and engineering
practice, and therefore stimulate students' interest in control engineering.